Mechanism and Function of Serine Hydroxymethyltransferase

The major source of one-carbon groups in the cell is the conversion of serine to glycine and methylene-H4folate. In addition to H4folate this reaction also requires pyridoxal 5' phosphate (PLP). The reaction is catalyzed by the enzyme serine hydroxymethyltransferase (SHMT). This proposal focuses on elucidating its structure, regulation, and mechanism. Under the previous grant the enzyme was purified to homogeneity from several sources and several more purifications are underway. Site-specific mutagenesis will be used to determine the function of several amino acid residues at the active site in the E. coli enzyme. Next the structural genes from rabbitt liver which code for cytosolic and mitochondrial SHMT will be cloned. The genes will be isolated sequenced and expressed in a procaryotic plasmid system. Additionally, the function of mitochondrial SHMT will be determined.